Shipboard Scientific Support Equipment

ABSTRACT

11 June 2008
Proposal Number: 0824996
Institution: San Jose State University, MLML
PI: S. Lamerdin

The proposal requests numerous Shipboard Scientific Support items for San Jose State University, Moss Landing Marine Labs (MLML) as well as other vessels in the academic fleet. The request includes modifications to improve the hydraulic motor on the primary CTD winch, a 500mm Harken block delivered through a group purchase administered by the University of Delaware, a Fleet 77 “Broadband” and Iridium phone through a group purchase administered by WHOI, two (2) replacement searchlights, and firefighting communications equipment for the R/V POINT SUR. Moss Landing Marine Labs is also administering a group purchase of firefighting turn out gear and SCBA’s for the academic fleet. All items will either enhance safety or provide greatly improved support capabilities to science.

Broader Impacts: The R/V POINT SUR supports both federal and state funded scientific research along the west coast and exposes graduate and undergraduate students to seagoing oceanography. The R/V POINT SUR will support over 80 NSF-funded days in 2008.